CICI:TCR: Demonstrating NSPM-33 Cybersecurity Critical Controls Transition at Research Institutions Through Accelerated Implementation, Case Studies and Community Engagement

Foreign adversaries continue campaigns to seek scientific and technological advantage through both legitimate and illicit means, including cyberattacks and threats, which can have a significant negative impact on research at academic institutions. Federal policies seek to strengthen cybersecurity protections for U.S. government funded research. Agencies are poised to implement cybersecurity standards for basic research which currently has no explicit cybersecurity requirements, yet can be of strategic national importance.

Representatives from agencies and institutions, including information security officers, have developed effective practices for implementing standards to protect basic research that focus on cybersecurity controls developed by the National Science Foundation. These controls are expected to raise some challenges and costs for institutions as they are implemented, and researchers will face a new frontier as lab-based cybersecurity approaches give way to enterprise-based solutions. These challenges may vary by scientific discipline and environment.

This project demonstrates implementation of the controls at the University of Notre Dame on an accelerated timeline, to identify and address challenges while developing reproducible implementation patterns, guidance and resources for the broader community. The project team works in parallel with a subset of additional institutions of different types, sizes, and research portfolios, as well as organizations with cybersecurity expertise, to explore implementation options tested in real and varied research environments. Guidance, case studies and other resources are disseminated throughout the project to guide and assist the broader institutional and researcher communities and strengthen protections for U.S. investments in research and the nation's health, economy, and security.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the NSF Office of the Chief of Research Security Strategy and Policy.